Collagen and Flexible Polymer Hydrogels as Parenteral Controlled Release Matrices for Polypeptides

The objective of this study is to gain a fundamental understanding of the relationship between drug transport properties and matrix composition in a novel parenteral controlled release matrix for polypeptide drugs. Developing effective parenteral drug delivery systems is critical to realizing the therapeutic potential of many new polypeptides being developed by the biotechnology industry. The goals of this study are: i) to define the relationship between matrix composition and matrix pore sizes; and ii) to define the relationship between pore sizes and polypeptide diffusion rates.